Asymptotic Enumeration of Tilings of Lattice Regions With Holes: A Finer Analysis Under Various Boundary Conditions

This proposal is concerned with the asymptotic enumeration of tilings of
lattice regions with holes. More specifically, using work of Fisher and
Stephenson as its starting point, it studies the interaction of the holes
when all the leftover portion is tiled, via a certain averaging over all
such possible tilings, called the joint correlation of the holes. In
earlier work, the proposer proved that the case of triangular holes on the
triangular lattice is governed, for large separations between the holes,
by a law closely resembling the superposition principle of electrostatics,
where holes correspond to charges of magnitude equal to the difference
between the number of unit triangles of each orientation they enclose. In
the current project, the proposer presents a program of research problems
that extend his previous work in some new, interrelated directions. One of
these problems concerns generalizing the superposition principle for
correlation to the case when the holes can be arbitrary (not necessarily
connected) unions of lattice triangles of side two. Another problem
considers a finer analysis of the correlation, namely the study of its
variation under small displacements of individual holes. The proposer
conjectures that these finer changes are also governed by a superposition
principle, analogous to the superposition principle for the electric field
in electrostatics. A third problem is concerned with studying boundary
effects. Besides the core research program outlined above, the proposer
also intends to study the symmetry classes of perfect matchings of a
certain family of graphs on the lattice determined by the tiling of the
plane by squares, regular hexagons and regular dodecagons, and determine
to what degree a parallel he found between the perfect matchings of these
graphs and the intensively studied plane partitions extends when
considering the action of symmetry groups.

This research is in the general area of Combinatorics. One of the goals of
Combinatorics is to find efficient methods of studying how discrete
collections of objects can be arranged. The behavior of discrete systems
is extremely important to modern communications. For example, the design
of large networks, such as those occurring in telephone systems, and the
design of algorithms in computer science deal with discrete sets of
objects, and this makes use of combinatorial research. The specific
problems in this project are instances of the dimer model of statistical
physics. A basic illustration of this is the real-world process (relevant
to the study of of lubricants) of adsorption of a liquid, consisting of
two-atom molecules---the dimers in the model---along the surface of a
crystal, whose fixed atoms form a lattice pattern, with any two
neighboring positions capable of holding one molecule, and any given
crystal atom being involved in the adsorption of at most one molecule. The
main issue in this setting is the asymptotic behavior of the quantities
that are studied (speciffically, the number of different ways the surface
of the crystal can be covered by molecules). In some of the instances we
encounter, the usually more difficult problem of determining quantities
exactly turns out to allow progress in the asymptotic study.